REU: An Intensive Observational Study of the Middle AtlanticCoastal Current

This project will study the coastal current flowing south along southern New Jersey and Delaware using data collected during an intense field program. Specific objectives include determina- tion of the spatial structure of the current, including details of the merging of its New Jersey and Delaware branches near or within Delaware Bay, and the existence of wave-like or eddy structure in the current. Further objectives include assess- ment of the across shore and alongshore momentum balances using CTD, acoustic doppler, and current meter data.